Reducing the Time to Product Stability through Global Testing

The goal of this research is to investigate a global testing infrastructure to identify critical factors that reduce the time to product stability while improving the competitive position of developing organizations. Teams of graduate computer science students in Ireland and the United States will conduct operational testing on an industrial software system following several scenarios. They will compare various approaches of processing trouble reports and software updates to determine their impact on defects uncovered, the severity levels and types of defects, and the complexity of the modules in which the defects occurred. The faculty and industry personnel are all participants in the Software Engineering Research Center, and NSF Industry/University Cooperative Research Center.